CAREER: Incentives and Coordination in Decentralized Technological Systems

Title:
CAREER: Incentives and Coordination in Decentralized
Technological Systems

Abstract:

Complex technological systems are prevalent in business and society. Typical
examples include supply chains spanning multiple independent corporations,
internet trading sites for business-to-business commerce, and health care
delivery systems. However, the technological complexity of these systems
poses numerous managerial challenges. These challenges are further amplified
when management control is decentralized and delegated to multiple
independent economic players. Therefore, to effectively manage such
decentralized technological systems, one must balance and reconcile the
conflicting objectives of the different economic players. The purpose of
this project is to develop a conceptual framework that captures both the
technological complexity and the decentralized nature of these systems, and
to derive concrete insights about their management. The specific activities
to be pursued include the development of mathematical and economic models,
and the subsequent investigation of systems with special structure that
arise in supply chain management and services management. The mathematical
formalism will be tested empirically on the US dialysis delivery system,
which best exemplifies the managerial challenges that underlie decentralized
technological systems. Computer simulation models illustrating the main
managerial challenges will also be developed, and used as an experiential
teaching devise for MBA students.